Coleoptera of Great Smoky Mountains National Park, U.S.A.

Documenting regional species diversity is an urgent task because the
extinction crisis has become more acute and more apparent to the collective
conscience of society. The insect order Coleoptera (beetles) is an obvious
starting point for this endeavor because it is the largest order of insects
and constitutes over 25% of total animal diversity worldwide. Likewise,
Great Smoky Mountains National Park (GSMNP) is an obvious place to begin
because it is a national treasure constituting one of the most biologically
diverse and unique landscapes in North America and is located in one of the
most densely populated parts of the U.S. This project will be conducted by a
team of 44 cooperating scientists engaging in an ambitious effort to
completely document beetle diversity in GSMNP. Methods will include
fieldwork by scientists, students and volunteers, morphological and
molecular analyses, and computer databasing. The project is fully integrated
with other teams of researchers conducting biotic surveys as part of the All
Taxa Biodiversity Inventory (ATBI) in GSMNP, including data and specimen
exchange, joint collecting events ("bioblitzes"), and networking at the
annual ATBI Conference. Products from the Coleoptera project of the ATBI
will include computer generated identification guides, internet species
profiles, and research publications. Project scientists have estimated that
3000 species will be recorded, representing 105 different beetle families.
Previous work has already documented 25 species new to science and this
number is expected to double during the four-year project. Ultimately, the
beetle fauna of GSMNP will be the best documented in the entire world. The
project is coordinated with Discover Life in America, Inc (DLIA), an
organization devoted to documenting life in U.S. national parks that serves
as a liaison between our team and participating units in the National Parks
Service, U.S. Geological Survey (USGS), and National Biological Information
Infrastructure (NBII).

The Coleoptera project is a significant part of a larger endeavor to assist
national parks and other conservation areas in the development of inventory
methods to compile data about biological diversity. This work is being
conducted under the broad umbrella of the GSMNP ATBI to document all species
within the park. Already, other national parks are implementing the
synergistic model established at GSMNP. Completion of the beetle survey
will serve these broader goals by demonstrating that the single most diverse
group of animals can be successfully documented. Beyond this, parks and
reserves in China and Nepal are closely monitoring this survey in developing
initiatives to save habitats and preserve biodiversity there. The education
components of this project will transfer basic knowledge of the importance
of all living things using beetles as examples to the youth of America
through the classroom and positive interactions with scientists in the
field. Products that will be available through the web have the potential
to teach millions of people about biodiversity and the importance of knowing
and understanding the organisms that share this world with us.